Limits of Information Flow in Networks of Two-Way Channels

Communication networks are critically important in the
dissemination of information in today's technological
society. Several academic disciplines have undertaken
the study of various aspects of their operation, but
an integrated theory of networking has been elusive.
The objective of network optimization theory is to
most effectively use network resources, but recent
work in network coding has demonstrated that a standard
assumption of flow conservation from this theory has
imposed artificial restrictions on the workings of
communication networks. Network information theory
considers more general models of communication and
offers some bound on the limits of information transfer
in a communication system involving multiple senders
and receivers.

This research fuses aspects of network optimization
theory and network information theory in order to find
and specify new limits of information transfer across
a communication network. The investigators use the
two-way channel from information theory as a general
model of the transmission medium between neighboring
processors of a communication network and address
fundamental optimization problems pertaining to the
analysis and design of networks of two-way channels.
The investigators seek optimal routing algorithms in
multicast settings and a broad classification of
situations where network coding can or cannot improve
upon routing. The investigators further aim to
categorize network scenarios in which a bidirected
cut set bound derived using information theoretic
arguments is tight and to explore a network information
counterpart to Kirchoff's law when the bidirected
cut set bound is not tight. The research also
involves extending the notion of minimal cost flow
as an initial approach to treating quality-of-service
issues and devising networks with least cost or
capacity that meet requirements on information transfer.